Incipient Failure Detection of Orthopaedic Implants Using Neural Nets and Vibrational Analysis

This is a fundamental engineering study to provide the basis for a new technique to determine incipient failure in hip joint implants. Transducers on the skin will provide non-invasive and non-destructive ultrasound to the tissue/bone/implant. A neural net will be involved in the analysis of the sound wave interaction with these biomaterials in order to characterize the state of the health of the bone/tissue surrounding the hip implant. This research could establish new diagnostic techniques and methods for analyzing for healthy or pathological tissue.